Advancing Atmospheric Sciences Through Radio Occultation

Weather satellites are essential for protecting life and property from severe weather, and equally essential for creating the long-term weather records needed to build preparedness and resilience against weather-related disasters. This project further develops a weather satellite technology that determines atmospheric temperature and water vapor, as well as electric charge in the ionosphere, by taking advantage of the radio waves transmitted by the Global Positioning Satellites (GPS) used for navigation and position finding. The absolute calibration of the data, along with its all-weather coverage and high vertical resolution makes it a valuable resource for fundamental atmospheric research and is a key contributor to improving weather forecasts. The project also promotes education and outreach, in part through summer colloquia on Radio Occultation (RO), and workforce development through support of postdoctoral associates.

This award supports a combined effort to maximize the value and use of GPS RO data for atmospheric science research, operational weather prediction, and the creation of long-term records of atmospheric conditions. One set of activities is devoted to processing, hosting, and serving RO data for atmospheric research. A second set of activities focuses on developing better algorithms for processing RO data, including algorithms for detecting ionospheric disturbances relevant to space weather. A third set uses RO data to conduct research on atmospheric phenomena including hurricanes and atmospheric turbulence.